ENGINEERING RESEARCH EQUIPMENT: Spectroradiometer for Measurement of Radiative Properties for Participating Media

A spectroradiometer is being acquired to obtain precise material thermal properties for work being conducted in the field of radiative heat transfer. The materials of concern are important in applications ranging from gas turbines and industrial furnaces to fire safety.